Connection to NSFnet

The University of Minnesota has a supercomputing center used by several local researchers, and accessed by remote researchers through ARPANET. However, because ARPANET is not available to many remote researchers, they are unable to access the center, and the local and remote researchers are unable to communicate and collaborate electronically. These problems can be overcome by connecting the University to the National Science Foundation Network (NSFnet) through MIDnet, a regional network serving nine midwestern states with medium speed (56,000 bits per second) communication lines. This funds only a portion of the system proposed by the University of Minnesota, and is consistent with NSF's policy regarding connection to existing regional networks. The communications line to an existing MIDnet node will be provided separately by MIDnet.